Technology for: Improvements of Mathematical Concepts and Initiation to Professional Tools

Computer technology is being used in calculus and statistics courses to enable students to readily visualize mathematical concepts. The learning of the concepts is the primary focus, rather than the manipulation of symbols. Guided discovery and problem solving strategies enable students to develop deeper understandings and stronger intuitions of the material. The technological tools available to today's work force are being incorporated into the mathematics curriculum, better preparing students for future employment.